Integration of Gradient High-Performance Liquid Chromatrography into the Chemistry Curriculum.

A gradient High-Performance Liquid Chromatography (HPLC) system with a multiple wavelength detector and a fraction collector will improve the undergraduate curriculum in chemistry. Instruction of chemistry, biology, and natural science majors will stress fundamentals of chromatography and the uses of HPLC for qualitative and quantitative analysis of thermally labile compounds, and for separation and purification. HPLC methods will be taught in Biochemistry, Instrumental Analysis, Organic Chemistry, Independent Study (undergraduate research), and Honors Thesis projects. The grantee will match the NSF award from non-Federal sources.